Active Site Spectral Studies on Galactose Oxidase

The goal of Dr. Whittaker's research is an understanding of the structural origins of the unique spectral and catalytic properties of the mononuclear active site in galactose oxidase. This site has already been extensively characterized in biochemical terms but many aspects of its structure and mechanism remain unclear. Dr. Whittaker is developing the information content of the unusual spectral features for this active site through parallel studies on the biological complex and structurally defined inorganic models containing copper in a formal +3 oxidation state. He is applying the powerful methods of inorganic spectroscopy to develop extremely sensitive structural probes of the active site metal ion and its interactions with protein and exogenous ligands.